RUI: Experiments on Trapped Krypton Atoms and Dielectric-Barrier Discharges

9876679
Walhout
This award to an undergraduate institution supports a two-component research project. In one part laser-cooled and magneto-optically trapped metastable krypton atoms are used to make precise measurements of the natural lifetimes of metastable states in different krypton isotopes. In the second part novel properties of dielectric-barrier discharges will be examined. These research efforts will be accompanied by an educational component that includes the development of a new physics course based on the theme of clocks and time keeping.